MRI: Acquisition of a Fluorescence Stereomicroscope to Enhance Undergraduate Research at Colorado College

This Major Research Instrumentation grant supports the acquisition of a fluorescence stereomicroscope
and an imaging system to enhance the research programs of Dr. Darrell J. Killian and Dr. Nancy N.
Huang in the Biology Department at Colorado College. The real-time visualization of fluorescent
molecules in living model organisms has become an indispensable technique because it allows the direct
observation and documentation of changes in gene activity, the localization of proteins within a cell, and
the tracking of cells and tissues during development. An important question in biology is how changes in
gene activity determine sex-specific development. The Killian Lab is interested in the identification and
characterization of genes that affect sex-specific development in the popular model organism
Caenorhabditis elegans (C. elegans), a soil-dwelling roundworm. C. elegans populations contain males
and hermaphrodites, which have some obvious morphological differences. However, sex-specific cell
type differences in the nervous system are not easy to see. Fluorescent markers for sex-specific cell
types have emerged as powerful and sensitive tools for the identification of defects in sex-specific
development. Mutants have been isolated that are morphologically normal males or hermaphrodites, but
with neurons that are normally only found in the opposite sex. The identification of the genes affected by
these mutations and their subsequent characterization will provide new insights into the genetic basis of
sex-specific development. Fluorescence stereomicroscopy and imaging are essential for the observation
and documentation of sexual defects that are detected in vivo using fluorescent markers for sex-specific
cell types. The Huang Lab is interested in how cellular identity, or cell fate specification, is established.
MEX-3 is a protein that plays an important role in cell fate specification during C. elegans embryonic
development. The MEX-3 protein is initially present in all cells of the embryo but becomes depleted from
the posterior cells by the four-cell stage. This change in MEX-3 distribution is required for the
establishment of the anterior/posterior axis of the embryo, thus it is important to understand how MEX-3 is
localized in the embryo. Preliminary evidence suggests that MEX-3 is actively degraded in a manner that
is dependent upon two different types of protein modifications termed phosphorylation and ubiquitination.
The identification of the specific sites of these modifications within the MEX-3 protein and the
identification of genes that regulate these modifications are of great interest. Fluorescence microscopy
will enable an in vivo study of the stability of fluorescently tagged MEX-3 when specific sites in MEX-3 are
mutated or when other genes in the C. elegans genome are disrupted.

Colorado College is the only nationally ranked liberal arts college in the Rocky Mountain region of the
United States and enrolls approximately 2000 undergraduates from all over the United States and
internationally. The Biology Department has a strong commitment to conducting original research with
undergraduate collaboration and the fluorescence microscope and imaging system will provide important
research and training opportunities for approximately 6-10 undergraduates working in the Killian and
Huang labs each year. In addition, many courses in the Biology curriculum feature inquiry-based
research lab experiences. Students with such experiences are best equipped to handle any postgraduate
challenges that they might face. The equipment will augment and improve laboratory activities,
demonstrations, and experiments associated with several courses and will impact approximately 200
undergraduates per year. The imaging system will be a particularly valuable teaching tool because it will
enable the instructor and a group of students to simultaneously observe the same sample on a computer
monitor. The Biology Department also plays a strong service role in the college by offering non-majors
courses that foster a strong appreciation for basic biology research and empower students to make
informed decisions and opinions on many popular topics in biology such as stem cell research, gene
therapy, genetically modified organisms, and environmental issues. The fluorescence stereomicroscope
will provide non-majors with unique and exciting opportunities to observe cutting-edge science first-hand.
Finally, Colorado College actively seeks to enhance diversity on campus and the availability of state-ofthe-
art instrumentation, such as a fluorescence stereomicroscope and imaging system, will help attract
underrepresented minorities and women to participate in biology research.